Correlative MF Radar Studies of Large-Scale Middle Atmospheric Dynamics in the Antarctic

Abstract 9319068 Fritts This project will measure the dynamics of the mesosphere and lower thermosphere (MLT) at high time and spatial resolution (2 minutes and 2 kilometers) using two medium frequency (MF) radars. The first radar will be built near McMurdo and the second either at Palmer Station or, if it is logistically more convenient, at the nearby Peruvian station on King George Island. These instruments will allow detailed studies of large and small scale motion fields and their latitudinal and temporal variability. When the data are compared to similar products from Northern Hemisphere radars it will be possible to study inter-hemispheric differences in the behavior of the MLT, which preliminary studies indicate are quite substantial. ***